Nuclear Structure Research

This grant will support the work of Notre Dame University Professor Ani Aprahamian, who will investigate the energy and lifetimes of levels in deformed nuclei produced in the fission of 235U Her analysis will center on the possible applicability of supersymmetry concepts in the description of multi-phonon vibrational modes in the neutron-rich nuclei being studied. The research will make use of the Notre Dame tandem accelerator, the ATLAS linear accelerator at Argonne National Laboratory, and the research reactor at Brookhaven National Laboratory.